North American Meeting of New Researchers

This proposal describes plans for the Thirteenth Meeting of New
Researchers in Statistics and Probability to be held in the campus of
British Columbia, Vancouver, during July 27--July 30, 2010. Housing, meals,
and conference facilities will be provided on campus. This conference
series is organized by and held for junior researchers. The primary objective
is to provide a much needed venue for interaction among new researchers.
In contrast with large meetings, this conference will be restricted
in size, with a target of 85-90 participants. Sessions will be followed
by panel discussions and breaks to facilitate interactions.
Participants will be statisticians and probabilist who have
received their Ph.D. within the past five years or are expecting to receive
their degree within the next year. Each participant will present a
talk or poster. Topics will range across a variety of areas in statistical
research from theory and methods to applications. Senior speakers will
discuss topics of particular interest to new researchers.
Panel discussions during the conference will cover the topics of journal
publications, opportunities in statistics laboratories and industry,
funding, mentoring, and teaching.

The intellectual merit of this proposal is based on its human resource
development. The professional development of new researchers is
stimulated by promoting their interaction, creating networks of
colleagues (which is usually difficult at a large meeting, such as
the Joint Statistical Meeting). Participants present their work
in a smaller, more controlled conference environment, maximizing
their intellectual interaction and growth. The primary goals of the
conference are professional education of new researchers and to help
create a network among these junior researchers, both are vital parts
of professional growth. Women, minorities, and the disabled are
explicitly encouraged to attend, and we have an established track
record of attracting participants from these categories.